Single and Two-Phase Thermosyphon Heat Transfer from Arrays of Discrete Heat Sources Submerged in a Dielectric Liquid

Interest in convection heat transfer from arrays of discrete heat sources has been stimulated by rapid advancements in VLSI chip technologies and the attendant need for effective heat dissipation. Recently, it has become clear that an important cooling option involves direct immersion of electronic components in a dielectric liquid, and considerable effort is being directed towards use of this option to dissipate large heat fluxes (> 100 W/cm2). Such efforts typically involve single-phase forced convection and forced convection boiling, with measures for effecting heat transfer enhancement. However, it is believed that, in the quest for achieving larger levels dissipation with forced convection, insufficient attention is being given to moderate heat flux applications for which cooling with no imposed flow of the dielectric liquid is desirable, if not mandatory. Such cooling schemes, involving either single-or two-phase thermosyphons, offer benign, passive conditions for which pumping requirements are eliminated, thereby reducing mechanical problems related to the hydrodynamic loads and vibrations induced by high speed flows. High-powered desktop computers and workstations of the future would constitute an important application of this technology, since complex coolant distribution units cannot be used in such situations. The proposed study seeks to assess means by which non boiling and boiling heat transfer from arrays of discrete sources may be enhanced for free convection in a cavity. For heat sources with and without extended surfaces, experiments and numerical simulations will be used to establish a basic understanding of related flow and thermal conditions and to determine operating conditions which maximize heat transfer per unit package volume. Heat transfer enhancement schemes to be considered include, but are not restricted to, low-profile studs, pin-fin arrays, longitudinal fin arrays, and porous fin arrays. Three-dimensional models, including the conjugate problem of substrate conduction, will be used for comparison with experimental results. The work is expected to enhance understanding of basic flow and heat transfer associated with discrete sources in a dielectric liquid with particular attention to heat transfer enhancement schemes which maximize heat flux at low coolant volumetric flow rate and low coolant system volume.